Developmental Planning Grant for the South Texas Mathematics, Science & Technology Center for Learning and Teaching (ST*MST*CLT)

This developmental proposal aims to create an integrated South
Texas CLT. The three institutional partners are The University of Texas --
Pan American, The University of Texas -- San Antonio, and The University of
Texas -- Austin. The CLT will work primarily with school districts in San
Antonio and the lower Rio Grande Valley of south Texas. More than 70% of the K-12
students are economically disadvantaged and almost 80% are Hispanic. During
the developmental phase they will explicitly assess the regional science,
mathematics and technology (SMT) educational needs and the specific
responsibilities of the participating institutions for meeting those needs
within a CLT. They will also evaluate relevant existing models and project
strategies dealing with defined goals and objectives (e.g., recruitment,
professional development, and/or pipeline infrastructures/career pathways
for SMT educator preparation) especially those appropriate for the
preparation of teachers of Hispanic students from bilingual, bicultural and
low socio-economic environments. Part of the developmental process will
focus on developing models appropriate for meeting these goals and for
identifying other institutional partners including community colleges and
professional organizations.